Energetics of Mammalian Reproduction and Life History

9309994 Kenagy The relationship between reproductive energy expenditures, body condition and reproductive success will be investigated in a population of golden-mantled ground squirrels that has been under study since 1984. The physiological dimension of the proposed research focuses on intensive physiological performances under natural conditions -- maximal production and maximal work load, and the accompanying demand for energy. Two model cases of this are the peak parental production expenditures that occur in lactating females and the peak behavior expenditures that occur in males associated with mating, aggression and defense. In each aspect of the study, performances are quantified in terms of proximal energy balance and its phenotypic variation, and then the ultimate success will be evaluated in terms of demography, i.e., survival and future reproduction. The direct relationship of daily energy expenditure, and the intermediary relationship of body mass and condition to survival will be examined, recognizing that reproductive performances may operate at similar peak levels for all members of a population and that the resulting reproductive output is individually optimized. In freeliving animals we measure energy expenditure using stable isotopes, and body condition (fat vs. lean components) by total body electrical conductivity. The upper limits of female reproduction, intake and expenditure will be investigated by experimentally manipulating maternal food supply. Overwinter energy balance will be evaluated by radiotelemetry of torpor patterns in hibernating squirrels. Flexibility and variable reproductive maturity in yearling males will be evaluated in terms of energy balance and an experimental manipulation of energy supply. This research should contribute to an integrated understanding of how variation in the physiology and behavior of individuals in a population translates into the expression of survival and reproductive success over the cou rse of life history. ***